Acquisition of Solid-State NMR Equipment

9724240 Davis Nuclear magnetic resonance (NMR) equipment will be acquired by the California Institute of Technology. The equipment includes 200 MHz, 300 MHz, and 400 MHz NMR spectrometers. The instruments will support research projects in materials chemistry and materials physics, including synthetic and catalytic studies of molecular sieves, order and dynamics in polymers, and the development of high sensitivity NMR methods. %%% The instrumentation will be part of a unique multi-user, solid state NMR facility, accessible to users within the Los Angeles basin. Students will be trained in the technique and in the use of the instruments, both through individual sessions and through a formal course. ***